Essential Surfaces and the Topology of 3-Manifolds

DMS-0203394
Ying-Qing Wu

The PI of this proposal intends to study the topology of 3-dimensional
manifolds via Dehn surgery, essential surfaces and essential
laminations. It is a common method to use 2-dimensional surfaces as a
tool in studying 3-manifolds. The most useful surfaces in studying
3-manifolds are essential surface, essential laminations, and Heegaard
surfaces. The purpose of this project is to study the properties of
3-manifolds using these surfaces and Dehn surgery. There have been
great progress in this area in the last few years, for example we now
know that an essential surface will remain essential after most Dehn
surgeries, and the exact upper bounds on distances between all ten
pairs of nonsimple surgery types have been determined. However there
are still some very important problems remaining to be solved in this
area. An objective of this project is to determine how many surgeries
are ``exceptional'' in certain sense, for example, how many will
produce so called Seifert manifolds, and how many will kill an
essential surface. The PI will also study the problem of how an
immersed surface intersects a Heegaard surface.

3-manifolds are objects that are locally like ordinary 3-dimensional
spaces, but whose global structure may be quite complicated. Such
objects appear naturally from different areas of mathematics as well
as physics and other sciences. The ultimate goal in the study of
3-manifold topology is to have a thorough understanding of the
structure of 3-manifolds. This has not been achieved yet, but there
has been a great progress towards the proof of a conjectural picture
described by Thurston more than 20 years ago. The PI proposes to
continue studying 3-manifolds via Dehn surgery, which is a method of
constructing new 3-dimensional spaces from an existing 3-dimensional
space, by removing a neighborhood of a circle and then gluing back in
a different way. The achievement of this project will be an important
step towards the goal of having a clear understanding of the
topological and geometric structures of 3-manifolds.